Some Problems Related to Fluid and Geophysical Fluid Dynamics

The investigator studies three classes of problems related
to fluid and geophysical fluid dynamics. The first class of
problems involves connections between the Navier-Stokes equations
of incompressible fluids and conventional turbulence theory. The
investigator studies links between the estimates of energy
dissipation rate of three-dimensional boundary-driven flows based
on the Navier-Stokes equations and Kolmogorov's heuristic
estimate of energy dissipation rate for turbulent flows, and
connections between the asymptotic degrees of freedom predicted
by the Navier-Stokes equations (either as the fractal dimension
of the global or exponential attractor, or as the number of
determining modes, nodes or volume of the system) and those from
conventional turbulence theory in combination with the heuristic
Landau-Lifschitz argument. The second class of problems is
boundary layer behavior associated with incompressible viscous
fluids whose dynamics are governed by the Navier-Stokes
equations. Both the case with non-permeable boundary and the case
with permeable boundary are studied. Results are checked via
numerical simulation and laboratory data. Some relevant efficient
numerical algorithms are developed as well. The third clas of
problems is related to geophysical flows, emphasizing emergence
and persistence of large scale coherent structures based on the
barotropic quasi-geostrophic model. Three prototype problems are
studied. The first is a selective decay problem for geophysical
flows that predicts the emergence of Rossby waves directly from
the dynamic equations. The second is a spin-up problem with
random forcing of small scale positive vortices. The third is
the barotropic quasi-geostrophic equations on the sphere.
Fluids are indispensable to our life. They range from the
air we breathe and water we drink to oceans and atmosphere that
cover the surface of our the earth. Study of the motion of these
fluids is crucial to us. At this stage full resolution of the
complete dynamic equations lies beyond the capability of the most
powerful computing system available today. Hence approximation
methods (both numerical and asymptotic) are needed to provide
qualitative and quantitative results on the behavior of the
fluids for simplified but prototypical situations. The problems
proposed here are prototypical and understanding them will
facilitate our understanding of fundamental concepts related to
fluid and geophysical fluid dynamics. Study of these typical
examples will further our understanding of more realistic and
sophisticated problems that are important in many engineering
applications (such as wing design or turbulent combustion) as
well as in weather prediction, climatology and environmental
phenomena.